Biodiversity and Ecosystem Informatics: The Eco Flight Simulator: Visualizing landscape patterns, ecosystem processes and biodiversity information using flight simulator technology

EIA-0131924
Stevenson, Robert
University of Massachusetts - Boston.

BDEI: The Eco Flight Simulator: Visualizing landscape patterns, ecosystem processes and biodiveresity information using flight simulator technology

Summary

This proposal develops the Eco Flight Simulator a system for visualizing landscape patterns,
ecosystem processes and biodiversity data. Many state and federal agencies are currently
gathering large amounts of spatial data via aerial photographs and satellite imagery that can be
used for seeing the landscape (distribution and location of habitats, size of habitat fragments, the
relationships among political and ecosystem boundaries), the analysis of ecosystem processes
(water cycling, nutrient cycling, pollution movement) and biodiversity issues (habitat types,
population of invasive species, species interactions, etc.). For the most part these data are
currently presented in the form of maps using GIS software. The view is static and the data
displayed are static (but see the USGS's National Map Initiative). However, flight simulator
technologies, developed first for the military and now common in the entertainment industry,
offer a much better visualization technology - a user defined birds eye view of the landscape
that can include the spatio-temporal complexity of the environment. Using standard off the shelf
hardware, open source software and public domain data, marine (Stellwagen Bank National
Marine Sanctuary in the Gulf of Maine) and terrestrial flight simulations (Ipswich and Parker
River Watersheds of Essex County Massachusetts) (one simulator) are developed that present
environmental information in new ways.